A Comparative Study of the Atmospheric Sulfur Budget in Different Natural Environments

Sulfur is one of the major elements which is essential for metabolic processes in all forms of biological organisms on our planet. Sulfur in its various chemical forms continuously cycled between the biosphere and other terrestrial reservoirs, such as the hydrosphere and the atmosphere. Natural sources emit a considerable number of organic and inorganic sulfur compounds into the atmosphere. These sulfur compounds are chemically transformed under atmospheric conditions into other sulfur species which are eventually removed from the atmosphere and led back to the biosphere and other reservoirs via dry and wet deposition processes. This cycle counteracts a build-up of toxic levels of sulfur in the atmosphere and, at the same time, supplies the biosphere with critical life-supporting sulfur compounds. Although emissions of man-made sulfur compounds are reasonably well documented, a major uncertainty in assessing the anthropogenic impact to the environment (such as acid rain and visibility) is the lack of understanding of the natural sulfur cycle. This project will develop measurement techniques for the major sulfur compounds in the natural atmosphere, including those in aerosol particles and cloudwater. The program is aimed at elucidating the relative importance of various natural environments with respect to the global atmospheric sulfur cycle. The sampling and analytical techniques developed in this work will be critically examined through intercomparisions. The result of this project should aid in laying a foundation for future comprehensive field experiments dedicated to a quantitative determination of the major chemical pathways of sulfur in the atmosphere and to an accurate assessment of natural verses anthropogenic contributions to the global atmospheric sulfur budget.